Femtosecond Spin Dynamics in Magnetic Semiconductor Quantum Structures

The effects of reduced dimensionality an quantum confinement on fundamental magnetic and electronic spin dynamics are being investigated in quantum structures fabricated from II-VI diluted magnetic semiconductors (DMS). Magneto-optical spectroscopy probes spin-dependent phenomena such as carrier spin-flip scattering, spin dependent electronic tunneling and localization, magnetic polaron formation, and spin-lattice relaxation processes. The program combines state-of-the-art techniques in femtosecond optical measurements, integrated DCSQUID technology and epitaxial materials fabrication to obtain a real-timed view of dynamical behavior in quantum magnetic systems.